Industry-Education Partnership: A Model for the Teacher Professional Continuum

This is a comprehensive, national, 5-year Teacher Professional Continuum (TPC) project to develop a learning community model that spans the educational continuum. It connects teacher research participation experience (TRE) projects and science, technology, and mathematics (STM) industry and university scientists/professionals to research the factors that contribute to the success of such a model. The TPC educational research will mine both the Principal Investigator's and other national TRE projects, education and industry (E/I) partnership immersion projects, and provide new education/workplace experiences for STM participants covering the teacher continuum. The project includes Local Learning Community cohorts that include two preservice science/mathematics teachers, two middle school teachers, a 7-12 science, mathematics and/or technology teacher, one middle/high school guidance counselor, a two-year Community College faculty member, and a four-year IHE science educator and/or science STM faculty member.